Integration of HPLC into the Chemistry Laboratory Curriculum

This projects integrates the principles and practice of high performance liquid chromatography (HPLC) into the chemistry curriculum. The students become familiar with the sample requirements, instrumental design and components, optimization methods, analytical applications, and preparative uses of modern HPLC equipment. The major use of the HPLC is in our advanced laboratory courses and in undergraduate research. It is exceedingly important that students acquire "hands on" experience with HPLC to prepare those going on to graduate or professional studies and for those immediately entering the work force in the local growing biotechnology industry. The institution is matching the NSF grant with an equal amount of funds.